Molecular Mechanisms of Protein Prenylation

This project studies the covalent modification of proteins by lipid moieties (the newly recognized modification by long chain--15 and 20 carbon--prenyl groups) that promote the interaction of proteins with cell membranes; the overall aim is to understand the molecular mechanisms involved in this prenylation and the roles that such modifications play in the targeting and activity of the modified proteins. Biochemical and molecular biological methods will be employed in pursuit of three aims: purification and characterization of the "GG transferase", cDNA cloning of the transferase, and immunologic analysis of this transferase, as these relate to mammalian proteins and membranes.